Further Measurements of Thermal Energy Charge Transfer in Support of Ground-Based Astronomy

AWARD NO: AST-0606960
PI: Daniel Savin
INSTITUTION: Columbia University
TITLE: Further Measurements of Thermal Energy Charge
Transfer in Support of Ground-Based Astronomy
ABSTRACT
This research is a continuation of an ongoing laboratory study of thermal energy
charge transfer among atoms and ions of astrophysical interest. It has long been known
that thermal energy charge transfer plays an important role in determining the ionization
structure, thermal structure, emission spectrum and absorption spectrum for a range of
cosmic plasmas. These include photoionized gas found in planetary nebulae, H II regions,
Wolf-Rayet nebulae, luminous blue variable nebulae, Lyman alpha clouds, and the
intergalactic medium; shocks in supernova remnants and Herbig-Haro objects; and
primordial gas clouds during the epoch of protogalaxy and first star formation.
Unfortunately, many theoretical calculations carried out during the past 25 years in
response to the demand for reliable thermal energy charge transfer data are reliable to
only a factor of 3-10. And while the latest state-of-the-art calculations are expected to be
more reliable, such efforts are less common and can still be off by a factor of 3 when not
benchmarked against experiments. However, few laboratory measurements exist despite
the demand from the community.
To address this need, an ongoing series of laboratory measurements of thermal energy
charge transfer will be continued using the Oak Ridge National Laboratory ion-atom
merged-beams apparatus. Here, measurements will be made of the thermal energy charge
transfer of C2+, O+, O2+, Se3+, and Kr2+. Reliable charge transfer data for the
cosmically abundant C2+, O+, and O2+ are needed for modeling planetary nebulae and H
II regions as well as shocks in supernovae remnants and Herbig-Harrow objects. Data for
Se3+ and Kr2+ are needed to analyze planetary nebula spectra in order to study both
nucleosynthesis via the slow neutron capture process and convective dredge-up in the
planetary nebula progenitor stars. These results will be used to produce rate coefficients
with an estimated accuracy of * 20% and will provide fits for plasma modeling. Modern
charge transfer theory will also be benchmarked against these results. Finally, the
laboratory apparatus will be modified so that the metastable fraction in the ion beams can
be measured and controlled. For beams with a significant metastable fraction, this will
allow the extraction of absolute cross sections for both the ground state and metastable
ions in the beam. This new capability will further increase the uniqueness of the Oak
Ridge National Laboratory ion-atom merged-beams apparatus.
The training and professional preparation of a graduate student will be supported. This
student will carry out a large portion of the project in partial fulfillment of the
requirements for the degree of Doctor of Philosophy. The results of this research will be
presented via seminars and colloquia to colleagues in academia, government, and
industry. Reports at national and international conferences will be given and published in
the appropriate journals. In addition, this work will further enhance the Columbia/Oak
Ridge National Laboratory infrastructure for research and education. Prof. Gary Ferland
at the University of Kentucky will input the new rate coefficients into CLOUDY which is
one of the most commonly used codes for modeling photoionized gas.